US-Russia Cooperative Workshop: Advances in the Modeling of Aerodynamic Flows (Miedzyzdroje, Poland)

9310161 Walker This workshop entitled "International Workshop on Advances in the Modeling of Aerodynamic Flows" will be held in Poland July 12-14, 1993. It will bring together approximately forty scientists from the former Soviet Union and forty from Europe and the USA to discuss the latest advances in the modeling of aerodynamic flows. One of the main objectives of the workshop is to initiate and foster scientific collaborations between scientists in Russia and the West in this field. This project fulfills the program objectives of advancing scientific knowledge by enabling leading experts in the U.S. and Russia to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.